Travel: NSF Student Travel Support for 2024 ACM International Conference on Information and Management (CIKM)

This proposal aims to provide travel grants that facilitate the attendance of students from United States universities at the 2024 international Conference on Information and Management ( ACM CIKM), in Boise, Idaho. The CIKM conference is recognized as a premier gathering within the fields of databases, data mining, artificial intelligence and information retrieval. It will feature a curated selection of top-tier technical papers, attracting a diverse international audience. The tentative five-day schedule for CIKM 2024 includes: Tutorials and Industry Day on Monday, Main conference from Tuesday to Thursday, and Workshop and PhD Symposium on Friday. To enhance research findings dissemination, conference proceedings will be published in the Association for Computing Machinery (ACM) Digital Library.

The CIKM agenda boasts an array of noteworthy events, including keynote presentations, paper technical presentations, an industry-focused day with technical talks, tutorials, workshops, and a PhD symposium. The travel awards will cultivate the next generation of scholars and professionals, steering them toward understanding the fundamental scientific principles crucial for developing large-scale information and knowledge management systems with enhanced effectiveness. Furthermore, through fostering collaboration between students and senior researchers from academia and industry worldwide, this initiative holds the promise of substantial intellectual rewards for both the field and the participating students.